Computer Instructions in the Biological Sciences

This award will provide funds to contribute computer support to the undergraduate laboratories of the Department of Biological Sciences at Rutgers University, Newark. The instrumentation requested includes a DEC MicroVAX computer system and a complement of instructional personal computers to be used independently or as dumb terminals linked to the microVAX system. The computer system with its complement of software will be useful to majors or non-majors at all levels of instruction. At the introductory biology level, the personal computers will be used primarily as instructor/tutors taking advantage of the simulation and modeling software presently available. At the intermediate level, the PCs will be used both as demonstrator/tutors in the PC mode and for treatment and analysis of data gathered during laboratory sessions in the terminal mode, linked to the microVAX. Finally, extensive use of the microVAX system will be made in the biotechnology specialization of the Biology major. The RS/1 scientific software package requested will allow one to go from raw data all the way through a finalized graphical representation of the transformed data. The Intelligenetics software package will be used exclusively for molecular biology and will provide students with much needed training in this important biotechnology area. The University has committed substantial personnel and financial resources to provide a state-of-the-are biological sciences and biotechnology education at Rutgers-Newark, and the program is being implemented by highly competent researchers and educators. The grantee institution is matching this NSF award with funds from non- Federal sources.